Problems in Homotopy, K-theory, and Representation Theory

DMS-0100710
Nicholas J. Kuhn

Professor Kuhn has a long record of developing
methods to solve interesting problems in homotopy
theory, K-theory, and representation theory.
The goal of the largest part of this project is
to connect new 'polynomial' resolutions of classic
function spaces to other things: model categories of
structured spectra, equivariant stable homotopy,
classial loop space theory, and periodic homotopy.
These connections will be used to calculate previously
inaccessible cohomological invariants of both such
function spaces and infinite loop spaces. A second
part of the work is a continuation of the study of the
generic representation theory of finite fields.
In particular, from his homotopical/K-theoretic point
of view, he is studying his newly discovered lattices
of generalized Schur algebras, with an eye towards
gaining insight about the modular representations of
the finite permutation groups, and the finite general
linear matrix groups.

Homotopy theory, K-theory, and representation theory
are mathematical subjects in which one is trying to
discover, and ultimately classify, fundamental building
blocks of various sorts of mathematical structure.
(This is quite analogous to a chemist studying simple
molecular configurations, and how these can be assembled
in more complex ways.) Homotopy is concerned with
deformations of geometric objects such as higher
dimensional surfaces. A sample hard problem is to
understand the `shape' of all continuous functions
from a sphere (surface of a ball) to itself.
Representation theory is concerned with the algebraic
symmetries of more rigid and discrete objects such
as configurations of lines and planes. A sample hard
problem is to understand all the basic ways in which
the set of n by n matrices of 0's and 1's can act on
strings of 0's and 1's. Finally K-theory is a
sophisticated hybrid of the two. Professor Kuhn is
studying new connections relating these subjects, by
developing and using a variety of state-of-the-art
algebraic and homotopy theoretic tools.